Support for Activities of the President of the Inter-Union Commission on the Lithosphere of the International Council of Scientific Unions (ICSU)

The principal investigator will serve as President of the Inter- Union Commission on the Lithosphere, a major component of the International Council of Scientific Unions (ICSU). The President will chair meetings of the Commission and oversee the Commission's intersessional activities. The Commission's work is directed towards development of an international interdisciplinary program of research on the origin, evolution, and dynamics of the earth's lithosphere, especially continental margins. The President will also direct the operations of the Commission's Secretariat, assuring that documentation is prepared for meetings, that reports summarizing these meetings and other commission activities are prepared and distributed, and that the Commission's work is coordinated with those of other related ICSU commissions and unions. The President will also represent the Commission in interactions with these other ICSU bodies.